Isomonodromy Transformations of Difference Equations

ABSTRACT

The project has two major parts. First, we take a rather
non-obvious definition of "monodromy" for difference equations due
to Birkhoff and aim to develop a general theory of transformations
of difference equations which preserve the monodromy. The
resulting structure bears some similarity to the classical theory
of isomonodromy deformations of differential equations and
degenerates to it in a certain limit. Second, we apply the
isomonodromy transformations of difference equations to evaluation
of the so-called gap probabilities in discrete probabilistic
models of random-matrix type which arise in many different domains
including combinatorics, representation theory, percolation
theory, tiling models, etc.

The theory of isomonodromy deformations of ordinary differential
equations with rational coefficients is a classical subject
developed in the end of the XIXth -- beginning of the XXth century
by Riemann, Schlesinger, Fuchs, and Garnier. Since then the
isomonodromy deformations have found numerous applications in very
different domains of mathematics and mathematical physics, from
algebraic and differential geometry to random matrices and
representation theory. On the other hand, in recent years there
has been considerable interest in analyzing a certain class of
discrete probabilistic models which in appropriate limits converge
to well-known models of random matrix theory. The sources of these
models are quite diverse, they include combinatorics,
representation theory, percolation theory, random growth
processes, tiling models and others. The goal of the research
presented in this proposal is to develop a general theory of
"isomonodromy transformations" for linear systems of DIFFERENCE
equations with rational coefficients. In these probabilistic
models mentioned above, we often see how two problems which seem
to be unrelated to each other, and which even come from parts of
mathematics that do not seem to have any overlap, lead to the same
final result. We believe that the project will provide a visible
common ground for many of such coincidences and thus will promote
and accelerate the exchange of methods and ideas accumulated by
different groups of researchers.